Workshop on Survey Frequency

This workshop brings together scholars from several social science disciplines to explore methodological innovations in surveys measuring environmental attitudes. New technologies have emerged that reduce the cost of scientific surveys, which leads to the potential to ask the same questions more frequently than before. However, the tradeoffs involved with this increased frequency are not clear. Workshop participants will discuss the scientific advances that might be uncovered with more frequent measurement, and identify the potentially unanticipated consequences of increasing frequency.

The results from this workshop will inform scientists studying environmental behavior, as well as behavior more generally, about feasibility of repeated surveys and how they might be developed and implemented most efficiently and effectively.